Collaborative Theoretical and Experimental Studies of QCD (CTEQ)

9410930 Tung A summer school on quantum chromodynamics (the theory of the strong nuclear force) and its implications for experiments in elementary particle physics will be held August 10-18, 1994. the school will promote a knowledge of quantum chromodynamics, whose predictions are important for very many experiments in particle physics, among younger scientists, including both experimentalists and theorists. ***